Macromolecular Interfaces with Life Sciences:Oxidative Processes

Many boundaries at the chemistry-biology interface remain unexplored and represent unique opportunities for the discovery of advanced technologies and the education of interdisciplinary scientists and engineers. Oxidation processes occur within both synthetic macromolecules and biological systems, offering a common theoretical base. Oxygen-centered radicals are implicated as intermediates in key chemical and biological processes such as lipid oxidation, cellular aging and product deterioration, as well as certain enzyme-mediated processes. The profound irony underlying all oxidation chemistry is that, in general terms at least, the same element that nature uses to sustain and regenerate life also plays a role in aging, disease, and death. Oxidative stress is implicated in many chronic diseases, including cancer, diabetes, obesity and the compromise of immune function. These chronic diseases contribute significantly to the projected $1.6 trillion in health care costs at the national level in 2003, costing 15% of
the national gross product. The development of antioxidant delivery systems, including antioxidant enriched foods, novel biocompatible synthetic polymer delivery systems, or new natural and synthetic macromolecular antioxidants would have major applications in combating oxidation-based diseases and aging.
The goal of the MILES Program is to construct a unique educational framework and collaborative research program, using free radical and oxidative processes as the thematic basis for scientific connectivity that bridges the gap between traditional macromolecular science and evolving biological disciplines.

Integration of Research and Education

Fifteen interdisciplinary research faculty in four colleges at Virginia Tech will collaborate with domestic and international universities, industries and national laboratories to provide unique cooperative research, multidisciplinary education, and outreach experiences for 36 graduate students. The Program will prepare doctoral-level candidates in chemistry, engineering, and life sciences as future leaders in academia, industry and government. The research efforts will include basic through applied research in four areas: 1) Fundamental investigations of oxygen-centered free radical mechanisms; 2) Oxidation in bio-derived monomers and macromolecular synthesis; 3) Oxidation control mechanisms in complex matrices; and 4) Oxidation processes in human and animal aging and disease.

The goals of the program are to: 1) Expand fundamental understanding and scientific vision of the macromolecule-biomolecule interface; 2) Develop creative and analytical thinking; 3) Integrate advanced research training with ethics education; 4) Develop practical skills in communications; 5) Enhance teamwork and develop leadership; 5) Promote diversity in culture and worldview; 6) Construct new avenues for community outreach; and 8) Create novel mechanisms to attract academically gifted students to graduate school. In order to be awarded a MILES program certificate, students will be required to submit an electronic portfolio that documents successful completion of required elements and optional selections that meet both the program goals and the individualized interests of the student. Unique outreach programs incorporate partnerships with the Science Museum of Western Virginia, the Collaborative Laboratory with historically black colleges, and domestic and international industry internships.

Broader Impacts

The university.s education and research infrastructure will be strengthened considerably by an interdisciplinary program design that crosses the boundaries of traditional academic disciplines. Broad societal impact will result from improved control of free radical and oxidative processes in biological and macromolecular systems, yielding important advances in nutrition, biomedical science and engineering, food biochemistry and functionality, and sustainable polymeric materials from bio-derived precursors. This training program will contribute to a new generation of professionals prepared to move society forward into an era of sustained health, well-being, and quality of life through technological advancements. Ultimately, the program will equip future scientists and engineers with the broad-based skills necessary to transcend conventional boundaries.